Student Travel Support to attend the 10th International Conference on Solid State Sensors and Actuators (Transducers '99) to be held in Sendai, Japan

9907883
Kenny
The 1999 International Conference on Solid-State Sensors and Actuators represents an
important opportunity to participate in discussion of the current state of the art in microstructure
fabrication and the development of MicroElectroMechanical Systems. The 10th International
Conference on Solid-State Sensors and Actuators (Transducers '99) will be held in Sendai, Japan,
from June 7 to 10, 1999, sponsored by the Institute of Electrical Engineers of Japan.

Transducers is a biennial conference focusing on theory, design, fabrication, and
application of solid-state sensors, actuators, and microsystems. It is an interdisciplinary gathering
with participants from university, government, and industrial laboratories representing a diverse
cross spectrum of fields: electrical engineering, mechanical engineering, materials science biomedical engineering, physics, biology, chemistry, and microelectronics.
***